CRI: Advanced Sensor Network Applications for Environmental Monitoring Systems

Abstract

Proposal: CNS 0454259
PI: John C. Kelly
Institution: North Carolina Agricultural & Technical State University
Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Advanced Sensor Network Applications for Environmental Monitoring Systems

Investigators at North Carolina A&T will develop a sensor network infrastructure with environmental monitoring for water quality management as an application focus. The proposal will support research and education in information systems in conjunction with an application in environmental science. Computer science issues to be addressed include wireless sensor networks, wireless network security, wireless network protocols, data collection for environmental monitoring, and data mining. Broader impacts include using sensor network technology to explore new sensor application in water quality management. The investigators have a strong educational program integrated with their research and plans to increase minority participation in computer science and engineering education and career paths.